Purchase of an FTIR Spectrometer

1he Department of Chemistry at the University of Colorado at Boulder will use this award from the Chemical Research Instrumentation Program to help acquire a Fourier transform infrared (FTIR) spectrometer. The areas of chemical research that will be enhanced by the acquisition include the following: 1. Identification of High Energy Intermediates in the Peroxyoxalate Chemiluminescence Reaction. 2. IR-VIS-UV Spectroscopy as a Probe of Molecular Structure and Organization. 3. Heterogeneous Photoreactivity of Photoreactive Atmospheric Molecules. Fourier Transorm Infrared (FTIR) spectroscopy is a technique that uses absorption of infrared energy to probe molecular structure. When used in conjunction with a modern computer, FTIR studies on large numbers of samples can be conveniently carried out and the resulting data readily analyzed. The use of FTIR spectroscopy is essential to chemists who are carrying out research in many important frontier areas.